An Aeromagnetic Survey of the Eastern Gulf of Mexico

Dr. Hall proposes to conduct an aeromagnetic survey of aportion of the Gulf of Mexico in order to map magnetic trends related to the formation of the Gulf in Late Jurassic time by processes of sea floor spreading and continental drift. The observed trend of magnetic anomalies in the Gulf wil help distinguish among several different suggested histories for the early history of the Gulf based on data from other ocean basins or from the margins of the Gulf.